Topology of Legendrian and minimal submanifolds

The project concerns contact geometry and the geometry of minimal varieties.
The soft properties of contact geometry are governed by so called
h-principles. In recent years, the hard properties have been uncovered by
using holomorphic curve techniques in the framework of Symplectic Field
Theory. The project proposes to study a part of this theory known as
Legendrian contact homology. This theory has had enormous success for
Legendrian knots of dimension 1. Parallels of the 1-dimensional phenomena
have been shown to exists for higher dimensional Legendrian submanifolds
but the effectiveness of contact homology in higher dimensions has been
limited because computations in the theory are comparatively difficult
since they involve infinite dimensional spaces in an essential way. One of
the main goals of this research project is to prove a conjecture which
reduces the computation of Legendrian contact homology in 1-jet spaces to
a purely finite dimensional problem. This would be important not only for
contact geometry itself: profound recent results in knot theory were
derived using heuristic arguments from higher dimensional contact homology
and a proof of the conjecture would establish the link between knot theory
and higher dimensional contact homology rigorously. The conjecture will
also be applied both to internal questions in contact geometry (e.g. to
estimate the number of double points of exact Lagrangian immersions in
$\C^n$) and to problems in differential topology. The project also intends
to complete earlier results concerning minimal surfaces with small total
boundary curvature as well as expand the range of applications of the
techniques used there, in particular, to problems concerning higher
dimensional minimal varieties. Many of the problems arising in connection
with this study asks for topological constructions with geometrical
control.

In topology one is often concerned with open differential relations and
the class of allowed deformations is very large. This is a reflection of
the fact that spaces studied in topology in a sense are "soft" objects. In
geometry, on the other hand, one often faces differential equations and
the class of deformations is considerably smaller. Comparing to the
situation in topology, one could say that objects in geometry are "hard".
This project proposes to study problems in the two areas, contact geometry
and minimal varieties, using the interplay between soft and hard.